Travel: Student Support for SIAM International Conference on Data Mining (SDM) 2026

This award provides domestic travel support for US-based Ph.D. students to attend the SIAM International Conference on Data Mining (SDM 2026), which will be held in November 19–20, 2026, Salt Lake City, Utah, U.S. SDM serves as an international forum for researchers in the field of data mining to showcase their work through a rigorous peer-reviewed process. Additionally, SDM offers an excellent opportunity for newcomers, including graduate students, to delve into the latest research developments via keynote talks and tutorials. The Doctoral Student Forum particularly provide a special platform for doctoral students especially in their early stage to present their research, interacting with peer student researchers and gain valuable feedback from leading researchers in the community.

The SIAM International Conference on Data Mining, a pioneer US-based conference in the field of data science and data mining since 2001, attracts top researchers from around the globe. To maintain the U.S. competitiveness in data science today and into the future, it is critical to have a strong representation of U.S. researchers, particularly graduate students, at the conference. This also helps insure a strong workforce pipeline in this important area of artificial intelligence. The financial support for the US-based doctoral student participants to attend with help develop their professional skills and expose their work to a broader community.